MRI: Acquisition of a Multimodal, MEMS-Based Nanoindenter for Fundamental and Applied Materials Research, Education, and Outreach

The development of novel materials hinges on establishing a fundamental understanding of the interrelationship between materials structure, properties, processing, and functional behavior. A critical step in achieving this lies in leveraging characterization tools, especially multifunctional instruments that have exceptional capabilities and include advanced analytical methods. This Major Research Instrumentation (MRI) award supports the acquisition of an environmental, multimodal, and high-resolution microelectromechanical system (MEMS)-based nanoindenter for evaluating the nanoscale mechanical properties of materials under application-critical conditions. The advanced capabilities of the instrument will have a profound impact on the research and educational programs at The University of Texas at Austin (UT-Austin), as they will: (a) enable a quantum leap in next-generation materials research, especially in the areas of clean energy materials, additive manufacturing, and microelectronics; (b) enable the mission of center-level research activities; (c) serve as a research facility of excellence for nanomechanical studies of advanced materials for southern US universities and industries; (d) foster the creation of start-up companies by providing the necessary research base with state-of-the-art and easily accessible instrumentation; and (e) enable the education, recruitment, training, and mentoring of students, postdoctoral fellows, and faculty in science, technology, engineering, and mathematics (STEM) disciplines.

The acquisition of an environmental, multimodal, and high-resolution MEMS-based nanoindenter will enable the characterization of the nanomechanical properties of materials under application-critical (environmental, thermal, electrochemical) conditions. The instrument has several unique, state-of-the-art features, including ultra-high displacement and force resolution and exceptionally low drift, high dynamic range, multimodal indentation functionality (enabling continuous stiffness measurements as well as constant strain rate and strain rate jump tests), high-speed nanoindentation mapping, and environmental control (from vacuum to ambient condition or controlled inert gas environments), as well as full remote access with active control capability. The instrument will enable a wide range of forefront research and discovery in the areas of materials science and engineering, nanoscience, and nanotechnology, including the development of low-cost, efficient materials for batteries for transportation and grid storage, as well as the development of additively manufactured materials. These capabilities will contribute to the development of a broad range of research and educational activities, including those supported by major centers at UT-Austin, such as the NSF-MRSEC Center for Dynamics and Control of Materials and the NSF-ERC Nanomanufacturing Systems for Mobile Computing and Energy Technologies. This will create vibrant synergies among UT-Austin’s research, training, and educational enterprise.